Establishing an Agenda for Science and Research on Serious Assaultive Violence

9415124 LOFTIN This is a project to develop a coordinated and integrated agenda for scientific research on violence. A workshop will be held in which leading social scientists who conduct research on violence will discuss ways to integrate studies from different theoretical perspectives and different levels of analysis. A recent National Academy of Sciences report stated that federal support for violence research was insufficient, short-term, and fragmented across specific problem areas. The report recommended a coordinated effort with long-term support so that information gained from individual projects could be developed into a cumulative knowledge base for planning effective policies. The present project will provide the basis for a coordinated knowledge-building effort in the conduct of scientific research on violence. ***